NSF Ocean Instrumentation 2022: University of Washington - R/V Thompson and R/V Carson

Requests are made by the University of Washington for Oceanographic Instrumentation (OI) on R/V Thompson, a 274-foot general purpose, global class research vessel, and R/V Rachael Carson, a newly outfitted 72-foot coastal research vessel, both operated as part of the US Academic Research Fleet (ARF). In 2021, Thompson completed 296 funded days with 224 (76%) of them for NSF. For 2022, the vessel is scheduled for 283 total days with 241 (85%) days for NSF. Carson had 73 days in 2021 with 22 (30%) for NSF. For 2022, there are 131 days scheduled, 69 (53%) of which are for NSF.

With this proposal, UW provides technical descriptions and rationale for the acquisition of the following Oceanographic Instrumentation:

1) Kongsberg Seapath 380-5+ MK-ll for R/V Thompson $83,839
2) Kongsberg Seapath 380-5+ MK-ll for R/V Carson $83,839
3) Kongsberg EM 2040 for R/V Carson $210,360
4) (2) Sonardyne Wideband Mini Transponders (WMT)
and USBL CASIUS support equipment for R/V Thompson $42,737
$420,775
Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 19-602). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.